CRI: CI-P: Creating the Largest Speech Emotional Database by Leveraging Existing Naturalistic Recordings

This community infrastructure planning project aims to consider the needs from other researchers in the design of the largest publicly available naturalistic speech emotional database, broadening the impact of the corpus across speech processing areas. The project includes a workshop with researchers with relevant but diverse expertise to introduce the current protocol for data collection, and requests their recommendations for improvements. The proposed activity will improve the protocol to address the needs from the community. Affective computing is an important research area aiming to understand, analyze, recognize, and synthesize human emotions. Providing emotion capabilities to current speech-based interfaces can facilitate transformative applications in areas related to Human Computer Interaction (HCI), healthcare, security and defense, education and entertainment. The research infrastructure envisioned in this project will open new opportunities that we cannot address with current speech emotional databases. In the area of affective computing, the proposed corpus will provide suitable training sets to explore learning algorithms that are powerful, but require large amount of labeled data. It is expected that the size, naturalness, and speaker and recording variety in the proposed corpus will allow the community to create robust models that generalize across applications. Improvements on speech emotion recognition systems will facilitate the transition of these algorithms into practical applications, providing unique societal benefits. The proposed infrastructure will also play a key role on other speech processing tasks. For the first time, the community will have the infrastructure to address speaker verification and automatic speech recognition solutions against variations due to emotion.

The proposed infrastructure relies on a novel approach based on emotion retrieval along with crowdsource-based annotations to effectively build a large, naturalistic emotional database with balanced emotional content, reduced cost and reduced manual labor. The database considers podcast recordings that are available in audio-sharing websites. Although the approach of building affective databases using media content has been previously explored, the contribution of this study is the use of machine learning algorithms to retrieve audio clips with balanced emotional content, providing natural stimuli with wider spectrum of emotions. The proposed approach relies on automatic algorithms to post-process podcasts and a cost effective annotation process, which make it possible to build large scale speech emotional databases. This approach provides natural emotional renditions that are difficult to obtain with alternative data collection protocols. This project involves the research community from the design of the corpus, which is the key goal in this community infrastructure planning project. The community also play a key role in the selection of target sentences to be emotionally annotated, with novel grand challenges where the goal is to recognize and retrieve target emotional behaviors in unconstrained, unlabeled recordings.